Archaeological Implications of Bofi Foraging

Meat-sharing with close kin and unrelated adults is believed to be one of
the most significant dietary changes to occur in the course of human
evolution. Despite its importance there is no consensus on when, why or how
sharing emerged among ancestral hominids. The problem lies not only in our
inability to confidently identify different sharing behaviors from the
archaeological record, but the lack of a theoretical framework for
understanding how and why sharing operates. With National Science Foundation
support Dr. Karen Lupo and a team of researchers will conduct two seasons of
ethnoarchaeological research on meat-sharing among Bofi foragers. The Bofi
occupy lush forested regions of the Ngotto Forest Reserve in the Central
African Republic and procure most of their food by hunting and gathering.
The research is guided by a larger theoretical context which views sharing
among family and between unrelated adults as fulfilling very different
goals. Provisioning, or sharing among family members, enhances the
survivability of close kin. But sharing with unrelated adults is aimed at
enhancing a hunters social status. The theory predicts that hunters will
vary their choice of prey depending upon their overall goal (provisioning or
status enhancement). The research team will use direct observations,
informant interviews and animal bone collections from different hunters and
their households to test salient aspects of this theory. These techniques
will allow the team to collect quantitative data on what hunters procure and
how much of it is shared and consumed by close family and unrelated adults.
Data collected with these techniques will be used to investigate the
following research questions: 1) Does meat-sharing vary predictably by prey type? If so, what
characteristics predict which prey will be shared with family and unrelated
adults? 2) Do hunters vary their pursuit effort of different types of prey depending
on their overall goal (provision family or enhance status)? 3) What is the material link between different sharing behaviors and the archaeological record?

The importance of this research is far-reaching. This project will be the
first systematic and quantitative study of prey choice and meat-sharing ever
conducted among contemporary foragers. This research will also examine and
identify the links between different sharing strategies, as reflected by
animal bones, and the material record. This latter point is particularly
important for archaeological investigations. The project combines
ethnoarchaeological research with a theoretical framework that will help
explain how and why sharing operates in a contemporary setting. By
extension, it will provide important new insights into the evolution of
sharing among ancestral hominids. Finally, very little is known about the
Bofi foragers. Thus far, only one other study has ever been conducted in
this area. This research will expand current understanding of contemporary
forager ecology.